I-Corps: Developing a data analytics platform for pain management and alternative treatment

The broader impact of this I-Corps project is to provide insight to support pain management with minimal intervention. The envisioned system uses off-the-shelf mobile and wearable devices already available as consumer devices to minimize costs to the consumer, recording pain episodes, sleep patterns, and associated lifestyle factors impacting pain management. Furthermore, it will enable communication between patients and health care providers so they can jointly identify effective treatment regimens to manage pain and reduce health care costs. It is anticipated that this will have particular value for shoulder, back and other musculoskeletal pains.

This I-Corps project draws on artificial intelligence (AI) and deep learning algorithms to help patients record their pain episodes, sleep and exercise patterns, and related activities. The research on which this project is based has shown that mobile and wearable devices are able to utilize sensors, including accelerometers, high-definition cameras, gyroscopes, thermometers and other environmental sensors, to collect diverse data and produce intelligent deep learning algorithms. Additional studies suggest that healthy lifestyles and alternative treatments impact reduced use of prescription drugs. The technology in this project provides an infrastructure for patients to collect their own data securely. Patients and health providers can access these data through an internet-based platform to analyze factors such as: 1) patient sleep patterns, exercises and similar activities; 2) frequency and severity of pain episodes; and 3) treatment effectiveness. The technology will serve as a technological infrastructure for patients to manage chronic pain intelligently. It also will support the development of related smart and connected health applications.